CMG Collaborative Proposal: Multiphysics and multiscale modeling, computations, and experiments for Karst aquifers

Karst aquifiers represent a very significant source of water for
public and private use. A Karst aquifer, in addition to a porous
limestone matrix, typically has large cavernous conduits that are
known to largely control groundwater flow and contaminant transport
within the aquifer. We will develop a new modeling approach for water
flow and contaminant transport in conduit/matrix systems. The flow in
the conduits will be described by the Navier-Stokes equations and
that in the matrix by Darcy's law. Convection-diffusion equations are
used to describe the solute transport in the two regions. The
conditions applied at the conduit/matrix interface are novel. We will
subject the new Navier-Stokes/Darcy model to rigorous mathematical
analyses, studying such issues as existence of solutions and
continuous dependence on data. This represents the first such study
of this kind. Analyses will also be used to take advantage of the
multiscale character of flows in Karst aquifiers to derive fully
justified model simplifications that will result in less costly
computational algorithms. We will also develop mixed Galerkin and
least-squares finite element methods for the coupled Navier-Stokes/
Darcy model along with a coupled convection-diffusion model for the
transport of contaminants. Experiments will be a crucial aspect of
the proposed project. They will be used to obtain information about
flows and contaminant migration in conduit/matrix systems that can
not only be useful to water resource managers and policy makers, but
also for the development and validation of mathematical models and
computational algorithms.

Certainly, advances in our quantitative knowledge of Karst aquifers
will greatly help in their administration, including the delineation
of source-water protection areas for public water supplies and the
design of monitoring programs to evaluate the residence and fate of
contaminant plumes. More generally, the methodologies we will produce
can also impact other underground fluid flow problems including some
arising in the petroleum industry. The proposed project will provide
a vehicle for the bona fide interdisciplinary training of students
and postdoctoral researchers. They will gain the ability to make
accurate quantitative assessments of aquifiers and thus can provide
industrial administrators and governmental officials with the
information they need to make sound policy decisions.